U.S. - France Cooperative Research: Wavelet Based Image/ Video Coding

9314747 Farvardin This three-year award supports U.S.-France cooperative research in communications and signal processing among three investigators: Nariman Farvardin of the University of Maryland; Michel Barlaud of the University of Nice; and Patrick Sole of the French National Center for Scientific Research in Valbonne, France. The objective of their research is to develop efficient and powerful image and video compression signals by using wavelet based methods. The U.S. and French investigators will study the problem using different approaches. The U.S. investigator brings to this collaboration expertise in perceptual image models, trellis and structured vector quantization and combined source- channel coding. This is complemented by the French group's experience in wavelet filters and lattice vector quantization schemes. The proposed research will advance our understanding of wavelet based compression schemes and could lead to the development of improved wavelet based image/video coders. These coders have numerous applications in medical imaging, geographical information systems, video-teleconferencing, high resolution television broadcasting, and archival and digital libraries.